Discrete Ca2+ Release Events in Skeletal Muscle

9724045 Schneider Large depolarizations of a skeletal muscle fiber produce high activation of transverse tubule (TT) voltage sensors, causing massive release of Ca2+ ions via activated sarcoplasmic reticulum (SR) Ca2+ release channels and generating a global rise of cytosolic Ca2+ or "macroscopic" calcium transient. Using laser scanning confocal microscopy and the fluorescent Ca2+ indicator fluo- 3, we have recently shown that if the extent of voltage sensor activation is drastically reduced, the large, spatially uniform macroscopic calcium transients seen during high activation decomposes into a stochastic population of highly localized "microscopic" calcium transients. These very small amplitude, spatially and temporally discrete calcium "sparks" appear to underlie the macroscopic calcium transient in skeletal muscle, occurring in large numbers and at high frequency due to activation of large numbers of TT voltage sensors during large depolarizations. We have also found that similar calcium sparks can be activated at triad junctions either by the TT voltage sensors or by myoplasmic Ca2+ . A fascinating and extremely exciting possibility is that a calcium spark could be produced by the opening of an individual SR calcium release channel or by a group of a few channels that function as an integrated unit. Thus, characterization of the properties of individual calcium sparks may now provide for the first time the possibility of determining the open time and Ca2+ efflux rate of an SR channel or of an integrated functional unit of a few channels under conditions that maintain the normal physiological control of the SR channels by the TT membrane voltage sensor in skeletal muscle. The general objective of the present proposal is to thoroughly characterize the discrete SR calcium release events in terms of open time and calcium efflux rate and to determine how these properties vary with the mechanism and conditions of channel activation. The spatio-tem poral spread of fluorescence within the myofibril-sarcomere during and after individual calcium release events will be monitored at a higher time resolution than previously available by using an acousto- optic laser scanning confocal system. The resulting high spatio-temporal resolution calcium spark images will be analyzed using computer modelling of the calcium binding, transport and diffusion within the sarcomere to determine the event open time and calcium efflux rate underlying each spark. These release channel properties will then be characterized as a function of fiber depolarization to determine possible effects of the level of TT voltage sensor activation on single SR release event duration and calcium efflux rates during physiological activation of skeletal muscle. We will also carefully test whether fiber repolarization, which rapidly deactivates the voltage sensors, can shorten the event open time of channels opened by the voltage sensor. The properties of ligand gated openings will be compared with those of voltage sensor gated openings in the same fiber to establish whether channel open time is an intrinsic property of the release channel or is determined by the mechanism by which the channel was opened. The rising phase of the calcium sparks will be carefully examined for possible evidence of secondary opening of ligand gated channels by calcium ions released by a neighboring channel directly activated by the voltage sensors. The proposed studies are highly significant to the basic understanding of control of calcium release channels in skeletal muscle since they will provide the first detailed characterization of the open times and efflux rates of channels or integrated units of a few channels under physiological control by the TT voltage sensor. It is extremely important to determine the extent to which these properties of functionally coupled channels correspond to those of channels studied previously in reconstituted systems without volt age sensor coupling. The proposed characterization of single SR channel properties in functioning fibers represents a major technical and conceptual advance in the understanding of intracellular calcium channels and the activation of skeletal muscle. Calcium ions regulate a wide variety of physiological processes that are at the very basis of how living systems move, respond to stimuli and regulate growth and physiology. Rapid release and translocation of calcium within cells mediates many of the responses essential to life. This award will support research that will allow direct visualization of the rapid release of calcium in muscle fibers. The function of muscle is dependent on regulation by calcium. The PI will examine the interrelationship of the function of membrane channels that conduct ions with the release of a calcium pulse. In other experiments the amount of calcium released during an event will be measured and the distribution of calcium events in response to intracellular and extracellular stimulation. The results of this research will provide fundamental information of a critical regulatory process of all living cells. ***